Mathematical Sciences: Adaptive estimation of nonparametric curves

This research examines sharp risk convergence for adaptive estimates of nonparametric curves in the absence of prior information on nuisance parameters.Since optimal risk convergence in this context depends crucially on the smoothness of the estimated curve, the goal is to develop a suitable estimator without a priori knowledge of the smoothness. Particular areas of application are probability density estimation, nonparametric regression, filtering and spectral density estimation. Most (optimal) estimates of curves from data rely on assumptions about the smoothness of the curve to be estimated. Adaptive estimation allows information about the smoothness to be built up as observations (data) are gathered. This is done at the same time and as part of the process of estimating the curve itself. For sequential methods of this kind, the amount of data required (sample size) depends on the observations and the underlying curve. Both theoretical approaches to an optimal overall strategy and some applications will be considered.